Computer-Assisted Generation of Hypothesis Feedback Models

The problem addressed by this research is that of load modeling. The one year period of the award will be used to refine the hypothesis feedback modeling methodology in a manner congruent with interence methods based upon discrete decision theory. Specifically, the work will concentrate on defining a class of static-process hypothesis and a method for developing hypothesis feedback models which are in agreement with a strategy for representation of the hypothesis and models in a knowledge-based environment for this class. The results of this project are expected to aid in a classification of applications and their relationship to the process hypothesis and knowledge-base used for analysis.